Studies of the Structure of RNA and its Binding Proteins

The integrity of genetic transfer in biological systems depends upon the fidelity with which amino acids are transferred onto specific transfer RNA (tRNA) molecules which are subsequently engaged in protein synthesis. This coupling is carried out by means of a large heterogenous class of proteins called aminoacyl tRNA synthetases. The twenty different amino acids each have their own subfamily of tRNA molecules and their own synthetases as well. Even though a great deal is known about the three-dimensional structure of tRNA, there is still uncertainly concerning the manner in which the tRNA molecules combine with such great specificity with their corresponding synthetases.*** The goal of this project is to study the three-dimensional structure of RNA molecules in various conformations, either alone or complexed to proteins. X-ray diffraction analysis of crystals is the major technique being used. Dr. Rich will undertake an examination of the manner in which the nucleotide sequence of RNA plays a role in governing its three-dimensional conformation. He also plans to investigate the nature of the interactions between proteins and RNA molecules.***